Conference on Analytical Economic Geography and Regional Change

U of Connecticut The proposed activity is a conference which focuses upon the topic of analytical economic geography and regional change. Six areas have been isolated for discussion. These are: regional impacts of international trade; investment in infrastructure; environment, resources, and regional wealth; clusters, linkages and industrial networks; hedonic and adjustment models; urban and regional growth models. The conference theme is prompted by the recognition that new changes in regional fortunes are evident and these invite immediate query to both mechanisms and measurement of how these occur. The project will result in a conference report that will be electronically distributed to appropriate communities of scholars.